EMT/QIS: Quantum Control of Impurity States in a Semiconductor

Quantum Control of Impurity States in a Semiconductor
Brage Golding and Mark Dykman
Michigan State University
E. Lansing, MI 48824
ABSTRACT
Quantum information is a new and rapidly developing interdisciplinary area of research
that resides at the interface between quantum physics and information science. It
addresses some of the most challenging fundamental problems in science and technology
while seeking to advance our understanding of the unique properties of the quantum
world. Among the predictions in this field is that of an exponential speedup of computers
that operate on purely quantum principles. If quantum properties are to be exploited for
qualitatively new capabilities, it is necessary to build systems that exhibit long-lived,
controllable quantum states. In addition, the devices should be compatible with
conventional electronics and photonics. The devices based on controlled impurity states
in semiconductors stand out as particularly attractive, since they should be scalable,
operate at high speed, and take advantage of existing semiconductor technology.
The quantum systems studied in this experimental and theoretical research are based on
acceptors in a semiconductor such as silicon. These are substitutional dopants, whose
atomic-like properties are well-known and invariant. The two states of a qubit are the
lowest orbital states of the acceptor, a result of splitting of the ground state by strain and
electric field. The distance between the energy levels is in the range of a few GHz and
each qubit is individually controlled by a gate electrode. Single-qubit operations can be
performed with short microwave pulses whereas two-qubit operations are enabled by the
long-range dipolar interaction between the acceptors, which allows the qubit-qubit
distance to be more than 100 nm. The readout of the final state of the system is based on
quantum nondemolition optical measurement of light scattering by an exciton bound to
the acceptor.